An Undergraduate VLSI Design Workstation Laboratory

This project will make innovative use of the microwave network being installed by the State of North Carolina to link the Asheville campus to the North Carolina Microelectronics Center. Using IBM PC AT's as workstations, students will be able to use the computing power of the Center remotely. Thus, at modest cost, fairly sophisticated design can be done at the undergraduate level in this emerging field.